Regulation of CNS Ion Channels By Lipid Signaling Molecules

9603837 Denson Electrical activity in the central nervous system (CNS) results from the transmembrane movement of charged ions through special openings in the neuron membrane called ion channels. One important ion channel within the CNS is a special type of potassium channel (called big potassium or BK-channels) which allows potassium ions to move from the inside to the outside of the cell . This movement is essential to maintain normal rhythmic activity of repetitively firing brain cells such as those involved in regulation of the heart rate and rhythm and sleep. Because of the importance of these channels, the mechanisms responsible for controlling their activity are interesting. Although some regulation of these channels depends upon changes in intracellular ions, regulation of these channels also involves chemicals which are normally produced in the cell membrane. Most of these chemicals are derived via the breakdown of fatty molecules called phospholipids. One major chemical reaction involves the production of a chemical called arachidonic acid from these phospholipids. Arachidonic acid has been shown to activate this special type of potassium channel either directly or by the regulation of other intracellular chemicals. To understand this regulation requires an examination of the both arachidonic acid and the other chemicals which may be affected by arachidonic acid. Since arachidonic acid is such an important regulatory chemical in terms of producing electrophysiologic responses, the experiments in this proposal will focus on the several possible pathways which govern arachidonic acid production. The objectives of the proposal are: (1) determine the characteristics of arachidonic acid activation of BK channels; (2) determine if arachidonic acid production is regulated by other chemicals to control the normal activity of BK channels, and; (3) determine whether the activity of these BK-channels is influenced by other chemicals produced norma lly by chemical reactions in the cell membrane. The results of this research will increase the understanding of BK-channel regulation, in particular, but also central nervous system ion channels, in general. In addition, the work could provide a new description of the interaction between product molecules resulting from membrane-associated chemical reactions which could be important in regulating rhythmic electrical activity in the central nervous system.